SBIR Phase I: Production of an Acyl Glycinate Surfactant by Fermentation

This Small Business Innovative Research Phase I project is aimed at demonstrating that acyl glycinate surfactant can be produced by a novel bacterial fermentation route. The objective of this project is to construct a bacterial strain that produces acyl glycinate, and to provide a sample of that surfactant for commercial evaluation. A successful outcome will demonstrate that acyl glycine can be produced by fermentation. Surfactants are the bubbly components of cleaning products that give them their cleansing power. Surfactants are currently manufactured from petroleum or from seed oils, such as palm oil. The use of those raw materials increases greenhouse gas pollution and also leads to deforestation of rainforests. Retailers are demanding greener products, and regulatory agencies are demanding new minimally toxic chemicals. The demand for greener chemicals creates an opportunity to replace current surfactants with greener alternatives.

The broader/commercial impact of the proposed innovation would be commercialization of the acyl glycinate surfactant. Additional benefits to society are that chemicals produced using this technology will be manufactured using domestically grown renewable raw materials, which do not compete with food sources. Furthermore, the energy required to produce these chemicals is low since the fermentation reaction is performed near ambient temperature. The chemicals are inherently safer than traditional chemicals because toxic solvents are not used, and the surfactants are biodegradable and do not contribute to increased greenhouse gas accumulation. Successful completion of the project will generate significant new scientific and technical information on new routes to making such surfactants.